SDCI Sec New: In-Depth Vulnerability Assessment of Middleware

This research establishes MIST, the MIddleware Security and Testing facility,
to identify security vulnerabilities in middleware, which include e-commerce
systems, supercomputers, and scientific and commercial networks. The
researchers are identifying limitations in current abilities to identify and
remediate vulnerabilities in the middleware. The limitations include assessment
techniques that provide insufficient focus on critical vulnerabilities and are
subject to high false-positives, tools that provide limited abilities to
find serious vulnerabilities, little or no formal characterization of
vulnerabilities, lack of trained security analysts to perform vulnerability
assessment, scarcity of curricula, both in academia and professional training,
for training security analysts, scarcity of training in software engineering
and design techniques for secure systems, and lack of independent vulnerability
assessment activities in middleware software development.

The researchers are developing first principles based vulnerability assessment
(FPVA) that starts with architectural and resource analysis of the software,
identifying high-value assets, and then derives threats based on how the
assets are used. This research includes new and extended algorithms and
techniques for tools to help improve the automation of this task, and new
software engineering and coding techniques for developing secure systems.
Results from their FPVA assessment activities are used to develop formal
characterizations of these hard-to-discover vulnerabilities and, from these
characterizations, develop algorithms for detecting these vulnerabilities.
From algorithms, they are developing new automated tools for detection. The
tools take the form of plug-ins to existing tools (to reduce unnecessary
effort and time-to-deployment).

This project expands the skills software developers by developing training
materials in the form of tutorials, short courses, and a new undergraduate
course in vulnerability assessment and secure coding practices.